Intense Flux Tubes on the Sun, U.S.-India Cooperative Research

Technical Narrative: In a joint research project, Dr. Wolfgang Kalkofen of the Harvard-Smithsonian Center for Astrophysics, Cambridge and Dr. S.S. Hasan of the Indian Institute of Astrophysics, Bangalore will study intense flux tubes on the sun. This investigation of small-scale solar magnetic fields is directed towards a fundamental, unsolved problem in solar physics, the heating of the quiet chromosphere which takes place mainly in magnetic flux tubes. This investigation seeks to examine the stability, dynamics, energy transport and oscillations in collapsing flux tubes by means of 1.5-D time-dependent, dynamical calculations. The use of two-dimensional radiative transfer, will be a significant improvement over previous analyses. The results of this study will help in understanding the physics of flux tubes, the structure of the bright chromosphere, and long-period oscillations of the atmosphere in flux tubes. Scope: This project joins efforts in radiative transfer by W. Kalkofen and colleagues at the Harvard-Smithsonian Center for Astrophysics and in magnetic fields by S.S. Hasan and colleagues at the Indian Institute of Astrophysics in Bangalore. It will begin collaboration between the Harvard group working on problems in radiative transfer, static magnetic fields and chromospheric heating and the Bangalore group investigating time-dependent magnetic fields, solar magnetic fields and chromospheric lines. Drs. Kalkofen and Hasan are highly competent researchers and the Indian Institute of Astrophysics has an excellent tradition of research on the Sun.